Peptide Delivery to Cell Cultures Using Intelligent Polymers

9707652 Brown This is a promising new investigator in the field of biomaterials and tissue engineering. She has great potential to become a fine scientist. Funding of this proposal is expected to advance the PI's career and meet the goals of this program. The proposed research investigates novel polymers that swell and collapse in response to electrical stimuli. These materials may be useful for modulated drug delivery. The PI has already constructed a prototype of the electrorelease chamber used in these studies and has an appropriate background to conduct the proposed studies. In addition to potential drug delivery applications, the proposed technology may be useful for in vitro evaluation of cellular responses to various substances. As technical notes, LDH is a crude measure of cytotoxicity and biocompatibility, as it detects rupture of cell membranes. Changes in insulin production, cell metabolism, etc. will be observed long before membrane rupture. Inclusion of a diagram of the electrorelease chamber would have been helpful, in that the photograph provided was not very clear. ***